Computation of Thermo-Solid and Fluid Dynamical Systems

In this project, the investigator proposes to: 1. Develop a protocol for computational mechanics methodology which enhances solution accuracy with reasonable resource demand, that will be appropriate for the computation of thermo, solid and fluid dynamical systems. 2. Integrate the protocols into one smooth solution algorithm. 3. Apply this new protocol in the solution of the flow between rotating coaxial cylinders; and 4. Investigate the potential generalization of the method to specific combinations of coupled thermo, solid and fluid dynamical problems. Solving models that combine these three areas: thermo, solid and fluid dynamics is a very critical problem in engineering technology. Reasonably good computational protocols are available to handle the above systems independently, but hardly any efficient technique has yet been developed to integrate the simultaneous solution of the three problem types.